ITR: Educating a Wireless Information Systems Workforce

EIA-0081327
Krishnamurthy, Prashant
University of Pittsburgh

ITR: Educating a Wireless Information Systems Workforce

The primary objective of this project is to develop and implement a
wireless information systems degree track that provides a unique education
in the development, design, and deployment of wireless information systems
with an emphasis on emerging wireless data technology. The goal is to
produce information technology (IT) professionals with the knowledge to
address the special challenges (e.g. user mobility, adverse communications
channels, limited battery life) posed by emerging wireless information
systems. A secondary objective is to develop innovative instructional
methods and tools using wireless devices in the classroom and laboratory
that extend through K-16 education. The research and coursework associated
with this educational track are needed to help meet the explosive demand
for IT professionals from wireless service providers, wireless equipment
manufacturers, applications developers using wireless systems, and wireless
information systems users.